Parallel Supercomputing at Caltech: Instrumentation Proposal

This award will support the purchase of the 570-node Intel Delta Touchstone System. This will be the world's fastest computer. The computer will be housed on the California Institute of Technology's campus, but has been acquired through the Concurrent Supercomputing Consortium. There are 14 members of the consortium, ranging from federal agencies, government labs, universities and Intel. The immediate benefit of the use of this machine will be to solve problems in areas of neurobiology, chemical physics, fluid dynamics and astrophysics. The researchers will attack problems in these and other areas that could not be approached with existing computers. The science, in this research, is driving the development of computational hardware and software. Experience gained by this set of researchers on this machine will demonstrate the use of parallel supercomputers to the nation's scientists. Further, it will help in developing new parallel architectures.